Engineering Research Center for Offshore Technology

Texas A&M University and the University of Texas at Austin will establish an Engineering Research Center for Offshore Technology, whose goals are: (1) To identify current and future technology needs of the off-shore industry for producing from deep water installations; and (2) Conduct cross-disciplinary research to fulfill these needs with the active participation of the off-shore industry; Exploiting deep ocean resources will require new structures and equipment to support engineering operations on and beneath the ocean surface. Early ocean petroleum exploration and production was concentrated in shallow water, using structures and facilities designed through engineering techniques developed for operations on land. Such approaches are not feasible in water deeper than 1000 feet. The purpose of the Center is to build the basic engineering capability for technologies to exploit resource recovery in the difficult and harsh environments of the deep ocean. New ideas for deep-water production envision floating production/system with three components, a subsea production unit on the ocean floor, a floating processing platform on the ocean surface, and flexible, vertical risers connecting the two. Design will require major advances in basic engineering knowledge. To generate the requisite knowledge, research will be grouped into three areas: Hydrodynamic loadings in deep water, Structural integrity of deep water systems, Materials for ocean applications. The education program will include both undergraduates and graduates, divided approximately equally. Their education will involve both research participation and hands-on design experience. The design will provide a basis for the education of students as working members of a cross-disciplinary design teams. Industry will look to the Center for basic engineering research and design. Full-scale evaluation, development and application will be the specific effort of each company. This will permit the companies to compete on the development phase, which is the area of their expertise. While with the universities, they can cooperate on the basic engineering research phase, which is the proper domain of university expertise.